RUI: Create High-Performance Theorem Provers

The proposal is to develop very high performance theorem provers by exploiting parallel computing. The new deduction systems will enable multiple processors to cooperatively attack a given problem, while allowing users to install their own representations of formulas and inference rules.